Workshop on Confidentiality Research

This award provides support for a Workshop on Confidentiality Research, to be held in Arlington, VA on 12-13 May 2003. Data and data access fuel the social science engine. The rapid pace of technological change, however, means that new attention needs to be paid to confidentiality issues in order to both fully exploit and protect the massive national investment in data infrastructure. The workshop will include noted researchers from a variety of disciplines, including cultural anthropology, economics, ethics, management science, sociology, and statistics. Short-term goals of the workshop include the identification of the most important research questions and cutting-edge issues in this area. It also is expected that this workshop will provide useful information to NSF staff that are involved in planning new activities for the Human and Social Dynamics priority area for FY 2004 and beyond. Research growing out of the workshop has the long-term potential of improving the availability and quality of social science data. The final report of the workshop will be made available to the broader research community.